Institute for Neuromorphic Engineering (INE)

This Research Coordination Network, in the form of an International Institute "without walls," is dedicated to the advancement of research and education in Neuromorphic engineering. Neuromorphic engineering is a young discipline in Bioengineering that is based on the design and fabrication on artificial neural systems, whose physical architecture and design principles are based on those of the biological nervous systems. The Aims of the Institute for Neuromorphic Engineering (INE) will be: 1) to foster the continuation and completion of specific collaborative interactions designated at the annual Workshop; 2) to organize smaller and highly focused meetings throughout the year to allow the exchange of ideas and discussion on designated topics, as well as to hold a mid-winter meeting to discuss and evaluate the progress of the INE; 3) to organize and expand the education activities beyond the confines of the Workshop to other participating institutions. The RCN members also will help organize the annual Telluride Workshop at which members and students will meet over three weeks for intensive research and teaching. The INE will have minimal permanent administrative staff and will have no permanent scientific staff, building, or equipment overheads. Instead, the INE will utilize the staff and facilities of its international member laboratories, which have a proven record of collaborative research.